Study of spin structure of hadrons using polarized photons

Our research during 2007-2010 will focus on polarization observables from photoproduction experiments using the CLAS detector system in Hall B of Jefferson Lab. As a leading institution in both the FROST program (using polarized photon beams and a frozen-spin target) and the HD-target program at CLAS (in collaboration with the polarized target group at BNL), we expect that run preparation, data taking, data calibration and reconstruction will be a large part of our effort during these years. In addition, ongoing analyses of omega electro- and photoproduction and K0 photoproduction will be completed. We will continue to perform essential service work for photon beam experiments in Hall B at Jefferson Lab, especially with regard to running the tagging hodoscope and the coherent bremsstrahlung facility. Moreover, our software support concerning charged particle tracking in CLAS continues to be crucial for any analysis of CLAS data.

Toward the end of this period, our work for the GluEx experiment in the new Hall D at JLab will begin taking more of our time. Our responsibility to build the photon beam line equipment is shared with U. Connecticut and Glasgow U.; we continue our R&D efforts and expect construction of the tagging hodoscope to start in 2010. Through all of this work, we provide training and professional experience to graduate students and a postdoctoral research associate.